Diffusing-Wave Spectroscopy and its Applications to Dynamical Studies of Dense Colloidal Suspensions

This research is concerned with the application of various diffusing-wave-spectroscopic probes to the study of the dynamics of dense colloidal suspensions. Light scattering experiments will be carried out on well controlled particles suspensions. The primary aim of the work is to explore basic scientific issues connected with: 1) the dynamics and structure of strongly interacting, dense colloidal suspensions, and 2) the transport of light dense random media. The secondary goals concern advancing diffusing-wave-spectroscopic measurement technology and attempts to apply the technique to more complex systems. It is anticipated the research will improve our understanding of the roles played by hydrodynamic and electrostatic interactions in affecting particle dynamics and structure.